Conference: CI / PAOS: Developing a Statewide Quantum Computing Working Group in the State of Arkansas

The proposal submitted by the Emerging Analytics Center at the University of Arkansas at Little Rock outlines an initiative to establish a statewide Quantum Computing Working Group aimed at enhancing education and workforce development in quantum computing across Arkansas. This working group seeks to bring together a diverse array of stakeholders, including universities, industry partners, and research institutions, to collaboratively develop a foundational curriculum that integrates quantum computing concepts into both university and high school education. By leveraging existing partnerships and resources, the initiative aims to address the current educational gaps in quantum computing and foster a multi-disciplinary community of researchers, educators, and professionals. The proposed framework will emphasize Research Data Management (RDM) practices and cyberinfrastructure capabilities, ensuring that students are well-equipped to tackle the unique challenges of this rapidly evolving field. Ultimately, the project aspires to create accessible educational pathways, stimulate local economic growth, and position Arkansas as a leader in the future of quantum information science.